COLLABORATIVE RESEARCH: ITR-(ASE)-(sim) : Worm algorithm and diagrammatic Monte Carlo for strongly correlated atomic and condensed matter systems

The goal of the proposed collaborative research project is to develop state-of-the-art Monte Carlo
(MC) algorithms for many-body quantum systems and exploit them using widely distributed com-
puting (three Beowolf clusters at UMass and CSI, and the supercomputer center at ETH, Zurich)
to simulate collective phenomena in trapped ultra-cold atomic gases, multi-component condensates
in optical lattices, disordered superfuids, polarons and excitons. The new numeric schemes will be
based on the Worm algorithm (WA) and Diagrammatic Monte Carlo (DMC) techniques. These are generic high-performance numeric approaches introduced by the research team for simulations of systems with complex topology of configuration space and a large number of continuous variables.

The programs will be made available as open source via a web page developed by the research team.